FT NMR, a Key Instrument for Undergraduate Education in Chemistry

Fourier-transform nuclear magnetic resonance (FT-NMR) is an essential tool used by chemists and should be an essential part of the undergraduate education of scientists. Two problems meet those attempting to implement FT-NMR in the undergraduate curriculum: the expense of the instrument and the ongoing maintenance cost. This solution has educational, scientific, and economic merit. The addition of a new electronics and a new C13 probe, the Anasazi ERT60/90 system, to an existing permanent magnet creates a system that can do multinuclear, 1- and 2-dimensional FT-NMR at a moderate cost. A series of projects take advantage of this system's ease of gathering data to use throughout a student's 4-year education, for both majors and nonmajors. An undergraduate who saw this new system demonstrated last summer remarked "organic students in the future will love you for getting this instrument." *